Cyclic Load Behavior of Metal-Plate Connected Wood Joints

Metal-plate connections are widely used in light-frame residential and commercial wood truss assemblies. An investigation in to the static and dynamic behavior of these connections has become an urgent problem in view of the great damage to wood structures, mobile homes and prefabricated houses subjected to hurricanes and extreme wind conditions. This investigation will determine the limits of design for safe construction of wood structures.